CAREER: Energy-Efficient Protocols for Multimedia Traffic in Ad Hoc Networks

Support for multiple quality-of-service (QOS) levels in mobile, distributed, packet radio
networks is required for many commercial wireless applications. Mobile radio networks (or ad
hoc networks) are required in situations where the network itself must be highly mobile and
where access to a fixed infrastructure of base stations is not available. To meet demands of
portability and low-power operation, it is desirable for a single ad hoc network to service the
traffic demands of a wide range of applications, including examples such as all-informed
multicast voice, real-time video, large file transfers, and interactive web browsing. Each class of
traffic has specific service requirements and these QOS levels must be provided from a mobile
and distributed network that operates with battery power only and with very limited bandwidth.
The Wireless Communications Program at Clemson University has recognized that
strong interaction among different protocol layers in ad hoc radio networks is not only desirable
but in fact essential. A single protocol layer cannot guarantee a specific quality of service for a
traffic type, but there must be coordination among the routing, queuing, traffic scheduling,
congestion control, channel-access, and adaptive-transmission protocols. We have already
demonstrated that information from the physical and link layers can be effectively utilized by the
routing protocol to dramatically improve the end-to-end network performance and reduce the
total energy expended by the mobile radios. The proposed research and education plan is based
on our previous results that show that strong coupling among the protocol layers is vital for
wireless communications networks that must interconnect highly mobile users and link them
reliably to a fixed infrastructure. This career plan is structured to extend previous results through
collaborative research that is focused on the link and network layers, and to explore a new topic
area by applying the advances discovered in our previous work to new research into the
interaction between the network and transport layers.
The proposed career plan is centered on both undergraduate and graduate student
participation. The topics are organized so that students with a range of experience levels can
make significant contributions. A key priority of the research plan is to include students with a
variety of career goals and motivate them to strive for the highest levels of scientific and
engineering excellence throughout their careers. Ample opportunities are planned to encourage
and develop promising undergraduate students to pursue graduate school. An important
component of the educational plan is to incorporate research tools in the classroom. Animation
tools that illustrate the performance of our distributed protocols have increased our
understanding our research and they will prove to be equally valuable in the classroom and
laboratory. Rather than simply reading about networking protocols in a textbook, students will
implement distributed protocols within a discrete event simulation program and see the
performance implications of the various protocols.